CRI: A Western New York Computational and Data Science Grid

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Developing the Lemur Toolkit into a Community Resource
Proposal: CNS 0454114
PI: Russ Miller
Institution: SUNY at Buffalo

This project builds on the Western New York Bio-informatics and Life Sciences initiative headquartered in Buffalo, NY. Partners include SUNY-Buffalo, Niagara University, and SUNY-Geneseo. Collaborators include the Roswell Park Cancer Institute, the Center for Computational Research at SUNY-Buffalo, and the Hauptman-Woodward Medical Research Institute The project will focus on the design, analysis and implementation of a computational and data grid serving the research, teaching, education and outreach needs of computer science, technology, bioinformatics, and life sciences in western New York. Research will include enabling technologies for lightweight, efficient monitoring of a the grid, methods to allow subsets of processors to seamlessly join and leave the grid, data collection and mining to support predictive scheduling, improve backfill usage, and providing a ubiquitous interface to users. Applications supported include bioinformatics, structural biology and life sciences. Broader impacts include outreach activities to the K-16 programs, a certificate program in high-performance computing, and diverse recruiting.